Explorations in Environmental Science: An Intervention Program for Talented High School Students

9353080 Leuth Tarleton State University will initiate a 6 week residential, Young Scholars project in earth science, life science, meteorology and chemistry for thirty rural students entering the 9th and 10th grades. Activities and instruction are centered around a central environmental science theme: non point source pollution in two watersheds. Scientific methodologies focus on pollution identification and remediation. The program provides classroom instruction, lab/field exercises, seminars on ethics and forums on career opportunities. Students generate, synthesize and present data in a final two day seminar for parents, peers and school teachers. In the follow up activities, students return to TSU for re-sampling and analysis of waters and biologic materials. ***